Test Algorithms for Physical Neighborhood Pattern Sensitive Faults in Reconfigurable RAMS

Saluja This research addresses testing large, reconfigurable random access memories for faults due to certain patterns originating in the physical neighborhood of a memory cell. These are pattern sensitive faults (PSF). Current methods do not deal with 5 and 9 cell neighborhoods, and are complex. In this research, necessary and sufficient conditions to test check bits for neighborhood pattern sensitive faults are being developed. Based on these results, algorithms to test for 5 and 9 cell physical neighborhood PSFs in random access memories (RAMs) are being designed. These algorithms deal with the cases where logical and physical address spaces are not identical, memories are reconfigured, and where built in error detection and correction techniques are employed. The use of these algorithms for built in self test implementation is being explored.